Enzyme Mediated Synthesis of Macrocyclic Lactones, Porphyrins, and Tropane Alkaloids

This Minority Research Award Planning activity is directed toward the use of enzymes to facilitate organic functional group transformation under extremely mild conditions often providing products in high yield. Enzymes have been shown to be useful reagents in synthetic organic chemistry. This project suggests the utilization of enzymes in the synthesis of macrocyclic lactones, porphyrins, and certain classes of tropane alkaloids. A major goal of this planning activity is to identify those enzymes capable of these transformations and to devise synthetic methodology involving enzymes in the preparation of these three classes of compounds. Preliminary experiments to strengthen the planned research proposal will be conducted utilizing undergraduate students. %%% Enzymes are catalysts for many biochemical reactions. In the past decade they have shown great promise as laboratory reagents in the synthesis of new organic compounds with great specificity and in high yield. A research proposal will be prepared concurrently with the activities planned in this project.